RIA: Technology Mapping for Timing Optimization

Part of the VLSI synthesis problem is mapping the Boolean equations onto a given set of primitive cells to minimize a total given cost function. The latter can be time (performance) or area or both. This process, called technology mapping, has solutions for Boolean tree networks. Algorithms for this are based on one-dimensional dynamic programming. The problem of doing the technology mapping of Boolean networks, represented as directed acyclic graphs (DAGs), is being explored. The major focus in this work is timing issues. Research tasks are: (1) deriving optimal (in latency) technology mapping algorithms for DAGs with recursive structures, and (2) extending these algorithmic techniques to arbitrary structures. The optimization technique is based on multi-dimensional dynamic programming.